"Let There Be Light!" Introductory Experiments with Electric and Magnetic Fields

"Let There Be Light!" Introductory experiments with Electric and Magnetic Fields Problem: Students in the introductory calculus-based physics course have great difficulty with the concepts of electric and magnetic fields, underlying the nature of light. Objectives: Develop new laboratory and "corridor" experiments to illustrate fundamental principles of electromagnetism, and in this context, provide an integrated introduction to electrical measurements and instrumentation. Methods: Based on hundreds of student interviews, prepare experiments and write accompanying materials rich in questions for students. Prepare illustrative video clips. Collaboration of Miami University and Brandeis University capitalizes on the different student environments to develop materials suited for many types of institutions. Significance/impact: Active learning through hands-on experience gives students real understanding of physics universally covered in the introductory course. Evaluation: by visits from external reviewers, by comparing pilot sections with traditional lab sections, and by Socratic questioning of individual students. Dissemination: Scholarly publication and presentations. Workshops. Disseminable products include written materials for students and faculty, plus video clips.